High Resolution ENSO and Other Paleoenvironmental Data for the last 20 ka from Cave Speleothems in Madagascar and Botswana

Abstract

This proposal requests support for a high-resolution study of paleoclimate in Africa. Because the climates of northwest Madagascar and Botswana are affected significantly by ENSO events, paleoenvironmental records are also proxy records of SST and El Nino frequency. El Nino events bring above-average rainfall to northwest Madagascar and below-average rainfall to Botswana. Stalagmites from Botswana, ranging up to 57 cm long, can provide a high-resolution record for this area for the last 2000 years. Formations from Madagascar, with one stalagmite almost 3 m long, can provide a high-resolution record possibly to 15-20 ka ago. This proposal requests funds to fully explore the potential of these stalagmites to provide high-resolution regional paleoenvironmental information, and also data on SSTs and ENSO, variations in del-13C, UV-stimulated luminescence of humic and fulvic acids, particulate matter, petrography, layer thickness, inclusion frequency' and gray level along the growth axes of stalagmites will be related to regional rainfall and temperature, ocean SSTs, El Nino frequencies, and Southern Oscillation characteristics.